Simulated Annealing and Neurla Networks for Large-Scale Optimization Problems

Control strategies for many large-scale engineering applications are often formulated as constrained optimization problems as exemplified by the optimal power flow (OPF) formulation for power system security. At present, only simplistic models of the OPF, using d.c. load flows, can be solved in a time-frame fast enough for real-time control. When reactive power and voltage along with more complex constraints are considered, solving the OPF problem becomes too time consuming. The goal of this project is to enhance the computational throughput of OPF and similar problems by applying two new approaches to constrained optimization which can how be implemented efficiently using nascent ASIC (application-specific integrated circuit) technology. These new optimization approaches are the simulated annealing algorithm (Astochastic state-space search algorithm) and the computational concept of neural networks (massively parallel, redundant, computational structures which are very conducive to VLSI implementation.) The project objectives are to first find a strategy for mapping the OPF and similar problems into the energy and constraint functions for simulated annealing and neural networks. Then, simulations for extracting the performance and cost benefits of these approaches will be developed. Finally, implementation of these systems in dedicated hardware using the latest ASIC technology will be assessed.